Analysis of the Tropical Atmosphere

9500338 Yanai This award provides support for a broad range of topics related to the dynamics of large- scale atmospheric motions in the tropics, with particular emphasis on the interannual and intraseasonal variabilities of those motions. Three main topics will be examined in diagnostic studies are: (1) the effect of processes such as snowmelt and moist and dry convection on the evolution of sensible heating over the Tibetan Plateau and nearby land areas, (2) the mechanisms responsible for the so-called 40-60 day (Madden-Julian) oscillation in the tropics as well as for oscillations triggered by tropical-extratropical interactions, and (3) the interaction of cumulus convection with large-scale motions on intraseasonal time scales. The various projects will employ a variety of data sets including analyses from the European Centre for Medium Range Forecasts and observations from the recent Tropical Ocean Global Atmosphere - Coupled Ocean Atmosphere Response Experiment (TOGA-COARE). The principal investigator, Dr. Yanai, is a well-respected diagnostician in the field of atmospheric dynamics with a distinguished track record. This project is jointly supported by the Climate Dynamics and Large-scale Dynamic Meteorology Programs. ***